Collaborative Research: Understanding surfzone dynamics using observations and artificial intelligence

The topography of the seafloor in the surf zone, the near-shore ocean area between the line at which waves break and the shore, often changes dramatically during and immediately after coastal storms. Obtaining accurate measurements of the seafloor depth, however, is a major limitation in understanding near-shore processes and the coupling between hydrodynamics (movement of water) and morphodynamics (movement of sediment), especially during storm conditions. This project will fill this gap by analyzing simultaneous, near-continuous observations of the evolving seafloor and circulation patterns during and after storms using remotely sensed camera imagery from drones in combination with a physics-informed artificial intelligence (AI) approach. Additional numerical simulations will help generate more training data for the AI models. The results from this work will help predict the impacts of coastal storms on beaches, dunes, and coastal infrastructure and will be useful to coastal managers and communities in terms of storm hazard assessment. In addition, the project includes student training and sharing of the AI models and code.

A team comprised of physical oceanographers, AI experts, and numerical modelers will collaborate to develop a deep learning AI method to estimate seafloor topography (or bathymetry) given existing and new remotely sensed, spatially dense surface flow observations. State-of-the-art numerical simulations for a wide range of wave and bathymetric conditions representative of beaches worldwide will also be used to determine coupled hydrodynamic-morphological evolution. The observed and AI-modeled data will be used to test the hypotheses that (i) the AI model provides accurate bathymetry given noisy surface current estimates, (ii) rapid increases in oblique wave energy as a storm approaches result in alongshore flows that cause the surf zone morphology to become more shore-parallel, and that (iii) as wave energy diminishes, small bathymetric perturbations in the relatively loose sediment grow, leading to positive feedbacks with the hydrodynamics and alongshore varying bathymetry. The project will lead to an improved understanding of the processes causing along-shore variable morphology, new AI techniques applicable to oceanography, and field validated numerical simulations of the surf zone.